Acquisition of an Electron Microprobe

9724291 DiSalvo An electron microprobe system will be acquired by Cornell University. The instrument will perform elemental analysis on the micron length scale for research programs in the Applied Physics, Chemistry, Geology, Materials Science and Engineering, and Physics departments at Cornell. The instrument will be part of an Electron and Optical Microscope facility that is managed by the Cornell Materials Science Center, where it will be accessible to all on-campus researchers and to researchers and students from local colleges. The microprobe will also be part of several courses in various departments that include its utilization for the study of materials. %%% The instrument will impact a large number of interdisciplinary research programs and the education and research training activities of undergraduate and graduate students. * * *